RUI: Heavy-Ion Reaction Studies at Hope College

9509900 DEYOUNG The general thrust of this proposal will be to examine the behavior of nuclear matter as one moves from normal cold conditions to highly excited conditions using the tool of heavy- ion collisions. Specifically we propose to measure: light charged particle coincidences with intermediate mass fragments (IMFs) to determine timescales at higher energies, angular distributions of IMFs in coincidence with a heavy residue over a range of energies, neutron-neutron correlation measurements at lower energies, and coincidences between pre-equilibrium light particles and heavy products at intermediate energies. We also propose to continue a small effort directed towards development of trigger algorithms and simulations for the STAR collaboration at RHIC. In addition to our own ambitious experimental program, we will also support collaborative effopts proposed by others, such as the anticipated measurements of the spin dependence of particle emission from compound systems, investigations of highly excited systems that do not fragment and additional measurements of excited nuclei which do disintegrate. Undergraduate students from Hope College will be involved in all aspects of these proposed experiments, and included on the publications that will result.***